Engineering Research Equipment Grant: Closed-Loop Cyclic Triaxial Testing System for Earthquake Engineering Research

An acoustic system capable of making accurate shear and compression-wave velocity measurements in soil specimens has been developed at the University of New Hampshire. This system has been used to determine the relationship between acoustic wave transmission characteristics and liquefaction resistance in sands. The objective of this project is to upgrade an existing cyclic triaxial soil loading device, and to increase the speed of operation of the acoustic system. The aim is to determine the capability of this system to investigate the behavior of clays under dynamic loading, specifically: (1) The generation of residual pore-water pressures and pore-pressure variation during individual loading cycles; (2) Shear modulus degradation and threshold levels of cyclic shear strain; (3) Evolution of material damping with cyclic strain level. This new testing system has the potential to yield important information on the failure of earth masses and building foundations during earthquakes due to the phenomenon of soil liquefaction.